Industry/Universty Cooperative Research Program Acquisition and Use ov Semantic Information for Natural Language

This project focuses on robust parsing of natural language input (in limited domains). The research addresses the problems of portability, reliability, and habitability. It outlines the development of a set of interactive tools which provide, to both the linguist and the end-user, an accurate set of domain-specific co-occurrence patterns. This set of tools will partly automate the creation of the Domain Information Schema (DIS), namely the domain-specific information required for processing a given domain. The same set of tools, provided with a different interface for the end-user, will be used to support interactive text entry.